Separation and Recovery of Ions from Aqueous Media with Redox-Recyclable Metal-Complex Extractions

Author: vjohn at nsf18 Date: 3/17/98 4:16 PM Priority: Normal TO: adthomas Subject: Abstract ------------------------------- Message Contents ------------------------------- Allison: Here is an abstract for a funding recommendation. Vijay Abstract Proposal No: 9726143 Proposal Type: Investigator Initiated Principal Investigator: Steven Strauss Affiliation: Colorado State University This grant is awarded through the Separations and Purification Program sub-element of the Interfacial, Transport and Separations Program of the Chemical and Transport Systems Division. The principal investigator is Dr. Steven Strauss from Colorado State University. The research will develop a series of redox-active metal-complex extractants to extract target ions from aqueous waste streams. The novelty of the research is the fact that the proposed technology may lead to extractants that are recyclable, with contaminant recovery in concentrated form, thereby minimizing disposal volumes. The extractants are ferrocenes and the target ions are typically ionic species. The closed cycle scheme proposed involves recognition and linking of the contaminant ions to the ferrocene extractant, removal of the ionic species, and reactivation of the ferrocene. The extraction selectivity can be modified through chemical modifications of the ferrocenes, and the PI proposes to study a class of polydentate ferrocenes where the ligands can be chemically modified by design to target specific ions. The development of molecular recognition compounds is of tremendous importance to separation and extraction processes associated with environmental technologies. The development of rugged, recylable extractants wi th molecular recognition characteristics can have a major impact on separations technology and pollution prevention.